SBIR Phase II: Line Scan X-Ray Tomography for In Cylinder Diagnosis

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

This Small Business Innovation Research (SBIR) Phase II project seeks to develop a sound and novel Line Scan X-ray instrument to characterize turbulent sprays and flames inside a windowless combustor. This project will develop and evaluate a prototype system that will be used by the automotive and gas turbine industries. The goal of the project is a commercially available diagnostic technique for obtaining detailed characteristics of flames and sprays inside windowless combustors.

The broader impact/commercial potential of this project is that it will enable industry to measure relevant information inside combustors, permitting stricter quality control and reduced pollution emission. Significant advances in the combustion process are required to enable quantum improvements in fuel efficiency. This diagnostic tool will provide the information critically needed to enable improvements in fuel efficiency and pollution reduction.